Acquisition of a Scanning Probe Microscope to Support Cross- Disciplinary Research Among Faculty and Undergraduate Students

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will enable the Department of Chemistry and Biochemistry at Calvin College to acquire a scanning probe microscopy system. The scanning probe microscopy research laboratory will enhance the research program of faculty and students in a number of areas including the following: 1) structural characterization of polymer brushes in a range of solvents, 2) structural characterization of self-assembled films on surfaces, 3) magnetic domain structure in ferromagnetic thin films, 4) molecular adhesion and lubricant properties of synovial fluids and artificial tears on polymeric surfaces. The scanning probe microscope is a versatile tool that has the ability to obtain surface structural information with high spatial resolution, as well as the ability to measure local mechanical and magnetic properties of surfaces. It will also give science students training in the use of this instrument which has applications in biology, chemistry and physics. A unique aspect of this program is to provide both interdisciplinary and cross-disciplinary research and educational activities to faculty and their student collaborators at an undergraduate institution.